Broadening Opportunities for Undergraduate Laboratory Research in Psychology

The psychology students will be provided with exposure to a variety of basic scientific laboratory situations involved in the experimental study of behavior. A computerized biofeedback system designed to measure human physiological responses (skin resistance, muscle activity, heart rate and brain waves) is providing students with the opportunity to study experimentally and clinically significant phenomena such as conditioning, emotionality, stress, anxiety and the effects of theraputic interventions such as biofeedback. Additionally, four custom circuit cards, complete with interface relays and switches, are being used in conjunction with the microcomputers and other hardware. The devices are designed specifically for the psychology laboratory and are facilitating the integration of the microcomputers into the undergraduate laboratory courses. Such integration provides students with first hand experience in using computers to control experiments and record and store data. The equipment is also being used in support of undergraduate student research projects.